Group Travel for International Workshop on Instabilities, Dynamics, and Chaos in Nonlinear Optical Systems; Lucca, Italy; July 8-l0, l987

Dynamics and chaos are subjects of increasing interest and excitement in the study of optical systems. An international workshop to address the current areas of difficulty, to assess the recent progress, and to permit sharing of ideas and results is planned for July 8-10, 1987 in Italy. Topics needing thoughtful discussion include: Spatial Pattern Formation, Polarization Effects, Transverse Effects, Multi-level System Dynamics, Four-wave Mixing and Dynamics, Dynamics in Semiconductor Lasers, Three-Frequency (quasiperiodic) Behavior, Few-Mode Interactions, Quantum Chaos, Chaos in Highly Excited Atoms and Molecules, Coherence and Statistics of Chaotic Behavior, Advances in Nonlinear Dynamics, Applications and Technological Uses of Nonlinear Dynamics, Dynamics in Optical Bistability, and Dynamics of Free Electron Lasers. This grant will provide partial support for travel of US participants in this workshop.